Statistics: Modeling of Processes in Science and Industry. A Conference Marking the 50th Anniversary of the Department of Statistics at Virginia Tech, August 13-14, 1999

Abstract: This award provides partial travel support and local expenses for 10 new researchers and 5 of the invited speakers at the conference on "Statistics: Modeling of Processes in Science and Industry" being held in conjunction with the 50th anniversary of the Department of Statistics at Virginia Polytechnic Institute and State University (Virginia Tech). The theme reflects the research accomplishments and philosophy of the department, which encourages interaction between theory and applications. The main objective is the search for general principles of statistical modeling as they evolve from specific applications in different subject matter fields. The conference will provide a forum for discussion of these ideas and establish communication between well established and new researchers. The timing on the heel of the annual joint statistical meetings in Baltimore should facilitate the travel logistics for potential attendees. Sessions planned will cover: Process and Quality Control, Experimental Design, Medical and Biopharmaceutical Statistics, Linear Mixed Models, Bayesian Statistics, Nonparametric Estimation, and Survey Sampling.